International Workshop on the Physics of Nonideal Plasmas; Rostock, Germany; September 6-11, 1998

This grant is for support of students and young researchers to attend the 1998 International Conference on the Physics Non-Ideal Plasmas in Rostock, Germany.